CISE Educational Infrastructure: Revitalizing the Computer Science Curriculum

This award is for the development of four freshman/sophomore courses for computer science majors and non-majors. The courses will teach multiple programming paradigms, introduce formal reasoning early in the curriculum, and exploit computational problems that arise in other disciplines. Course material will be made available to other academic institutions and results of the educational effort will be presented at professional meetings and conferences. Cornell University plans to develop four introductory/ sophomore level courses for computer science majors and non- majors. One course, targeted at students with no previous programming experience, will focus on developing the students' general problem-solving skills as well as their ability to use notation and abstract thinking. The other three courses are alternative courses for audiences with some background in computer science. These courses will provide a formal introduction to functional programming and formal reasoning, as well as continued instruction in imperative programming. Course materials will be disseminated to other academic institutions and presentations will be made at professional meetings and conferences.